ADVANCE Leadership Award: From associate to Full Professor with Distinguished Faculty Leading the Way

The Computer Research Association proposes to address the problem of too few full professor women faculty by creating the Associate Professor Cohort Program. This program aims to increase the percentage of women faculty holding degrees in Computer Science and Engineering with the rank of full professor by forming and mentoring a cohort of women from the associate professor ranks.

The cornerstone of the Cohort Project will be the involvement of 15 senior women, appointed as CRA-W Distinguished Professors, who will actively participate as
role models, mentors, and advisers. The project will build a community of associate professors, and provide them with mentoring, leadership training, encouragement and ongoing peer-support activities. The program will include an initial Professional Development Workshop, a series of smaller meetings in conjunction with technical conferences/seminars, and ongoing electronically-based support activities.